Materials Science Research Center of Excellence

Howard University Materials Science Research Center of Excellence (MSRCE) proposes to continue its research in the fields of materials science and engineering. This center will conduct research on artificially structured materials and wide-band gap semi conductors to produce optical and electronic devices, with emphasis on those materials that can operate at high-power levels and/or in harsh environments. A second objective of the MSRCE is to contribute to the understanding and development of advance materials as well as provide graduate education opportunities for minorities in important fields of science. A third objective is to maintain a competitiveness in the age of materials for the 1990's. This project meets the major goal of the Minority Research Centers of Excellence (MRCE) program: to increase the minority presence in science and engineering by making substantial resources available to upgrade the research capabilities of strong and productive minority institutions. Howard University as an institution and the MSRCE program, in particular, have proven their effectiveness in addressing some of the problems which beset the national research community in materials science and engineering and in educating minority students in a high quality research environment.